Support for Publication of "Air Pollution and Climate Forcing" Workshop Report.

This interagency transfer to the NASA Goddard Institute for Space Studies supports publication of a workshop report, associated with the workshop held on "Air Pollution and Climate Forcing" held April 29-May 3, 2002 in Honolulu, Hawaii. The purpose of the workshop was to illuminate the role of air pollution as a global climate forcing and to place climate-related impacts of air pollution in the context of its other human health and environmental impacts. The workshop itself was an interagency effort, held at the East-West Center of the University of Hawaii, and sponsored by the National Aeronautics and Space Administration, the National Oceanic and Atmospheric Administration, the National Science Foundation, the Hewlett Foundation, the California Air Resources Board, the California Energy Commission, the International Pacific Research Center, and the East-West Center. Specifically, this transfer covers the production of 500 copies of the report, "Air Pollution as a Climate Forcing: A Workshop."